HAWAII'S VOLCANOES: A MEDIA PROJECT

This Communicating Research to Public Audiences (CRPA) proposal is based upon Dr. Donald DePaolo's research utilizing deep drilling technology to create a continuous rock record of the lavas ejected from Hawaii's Mauna Kea volcano (#9528544 "Collaborative Research: Scientific Drilling in Hawaii: Physics and Chemistry of Mantle Plumes" and # 0408521 "Structure of the Hawaiian Mantle Plume: Geochemical-isotopic mapping using post-shield lavas"). The CRPA request will support the production of a half-hour documentary film and podcast-based tour of the geology of Hawaii's famous volcano for both actual and virtual visitors to Hawaii, as well as a supporting web site. The film will be produced by Earth Images Foundation, distributed by Bullfrog Films, and evaluated by Diana Curiel.